Micro-Optic Fibers for Optical Sensing and High Resolution Imaging of Reactive Surfaces

It is the aim of this Small Grant for Exploratory Research to fabricate optical nanofibers and explore their use for optical sensing and imaging of surfaces. The fibers are employed in two environmental modes: (1) the tips of cleaved nanofibers are coated with metal films for examining their interaction with aggressive environments through detection by internal reflectometry within the fiber; (2) spectroscopy measurements are carried out with uncoated fiber tips to sample small volumes of gases and liquids near reactive surfaces. In the first mode, the optical fibers are used to conduct experiments inside an environmental scanning electron microscope chamber in order to obtain concurrent surface morphology and corrosion reaction rate measurements in a controlled atmosphere (to 20 torr pressure). In the second mode of operation, the spectroscopic detection of species near reactive surfaces is sensed in volumes whose size is dependent on the diameter of the fiber and the wavelength of light. Reactive surfaces themselves will be imaged to detect submicron heterogeneities and defects. %%% This research has the potential to open new fields for optical sensing and high resolution imaging. It may be possible as a result to follow surface chemical interactions in difficult environments in situ in real time.